Mathematical Sciences: Group Proposal for Research: Harmonic Analysis and Differential Equations

9401579 Stein The work of all investigators supported by this grant revolves around central issues of harmonic analysis and partial differential equations with applications to mathematical physics, geometry, fluid mechanics. Investigations into areas of Fourier analysis related to oscillatory integrals, the Heisenberg group, Hardy-space theory, the theory of para-products and several complex variables will be carried out. Among the problems to be investigated are the asymptotic formula for the energy of the ground state of a large atom, nodal domains for eigenfunctions of Laplacians, Navier-Stokes equations, Szego-limit theorems for eigenvalues and the behavior of Bergman and Szego projections. Partial differential equations form a basis for mathematical modeling of the physical world. The role of mathematical analysis is not so much to create the equations as it is to provide qualitative and quantitative information about the solutions. This may include answers to questions about uniqueness, smoothness and growth. In addition, analysis often develops methods for approximation of solutions and estimates on the accuracy of these approximations. Harmonic analysis combines those elements of mathematics best exemplifying the ideas of synthesis. One seeks to decompose complex problems into fundamental components. These components are then analyzed for their basic characteristics. Finally, the solution is reconstructed through a recombination of the components. The Fourier series and Fourier transform are examples of tools used in this context; one discrete , the other representing a continuous decomposition. More recently the wavelet theory added new dimensions to some of the more classical approaches to harmonic analysis. ***